CEDAR: Small-Scale Plasma Structuring Mechanisms in the High-latitude Ionosphere

ATM9813861abs

The investigators will continue studies on the generation mechanisms of small scale size irregularities in the high latitude ionosphere. The focus of the research is to further develop and augment a numerical three-dimensional model of one of the main structuring mechanisms in the region, namely, the EXB instability. The methods to be employed will be numerical three dimensional models applied to the high latitude ionosphere by inclusion of inertial effects. Early results from the model show that without inertial effects the small scale structures can grow on slow time scales due to the stabilizing influence of parallel electron dynamics. Thus, plasma structure in the high latitude regions can be maintained for hours. However, observations indicate this may not be the case. Also, the simulations indicate that the spectra of density irregularities show strong asymmetry in the two directions transverse to the direction of the magnetic field. This is also not observed. To address these discrepancies, the investigators will introduce inertial effects to make the linear and nonlinear polarization drifts more significant. The new model with inertial will unify many observed features. These results will be compared with observations and new experiments will be suggested to test the theoretical results